RUI: Numerical Relativity for Next-Generation Gravitational-Wave Observations

Gravitational waves are ripples of warped spacetime that travel through the universe at the speed of light. Emitted by the most cataclysmic events in the universe, such as colliding black holes, gravitational-wave astronomy gives humanity a new way to observe the universe. Today's observatories have seen hundreds of gravitational waves, mostly from colliding black holes. The next generation of observatories will be able to detect gravitational waves from the edge of the observable universe and will reveal the nature of the universe's strongest gravity with extremely high fidelity. This award supports a research program that will use supercomputer calculations to predict the gravitational waves from merging black holes that future observatories will see. The project will advance our understanding of how close today's calculations are to the accuracy that future observatories will need, and it will also advance our understanding of how to minimize the computational cost of achieving such high accuracies. Through their participation in this project, undergraduate and master's students at California State University, Fullerton will play important roles in gravitational-wave astronomy while learning research and computational skills that will prepare them for successful STEM careers. The PI and student researchers will integrate results from this work into a week-long workshop that will introduce community-college students to gravitational waves, high-performance computing, and undergraduate research.

This award renews support for California State University, Fullerton's computational gravitational-wave research program. The PI and students at the undergraduate and master's level, working as members of the Simulating eXtreme Spacetimes collaboration, will use numerical relativity to model merging black holes, focusing on applications for the Laser Interferometer Gravitational-Wave Observatory (LIGO) and Cosmic Explorer (CE, a concept for the next gravitational-wave observatory in the United States). First, the team will use the Spectral Einstein Code (SpEC), a state-of-the-art numerical-relativity code, to model merging black holes with spins nearly as fast as possible, an astrophysically important case that is especially challenging for numerical relativity. The team will use recent technical advances to push SpEC to its accuracy limit and then assess whether the computed waveforms are accurate enough for LIGO and for CE. Second, the team will advance the development of SpECTRE, an open-source, next-generation numerical-relativity code, so that it can model merging black holes in a variety of configurations at least as efficiently and accurately as the closed-source SpEC code can. The numerical-relativity models of gravitational waves from merging black holes that result from this award will help calibrate and validate improved approximate models used to interpret gravitational-wave observations, and they will help maximize the science recovered from future high-fidelity gravitational-wave observations.